Tectonic and Petrologic Features of the Siberian Plate During the Precambrian

Western knowledge of major Precambrian tectonic and lithologic elements in the basement of the Silurian plate is limited, although considerable data on that geology exists in the (former) USSR. This action provides support for O.M. Rosen, an expert on the Siberian plate, to collaborate with workers at the New Mexico Institute of Mining and Technology in evaluating and analyzing much of the existing information. Results should provide a compilation of relevant data and several manuscripts that will be of considerable value to western workers in the Arctic basin including Alaska.